SGER: Media Enhancement Experiment

9615955 Low This project will explore new ways to reach a broadcast audience wider than those who normally would watch an NSF funded television program on PBS. The PI will define new, non-competitive relationships between PBS and other broadcast or cable venues and will explore incentives for pursuing such relationships. The specific tasks to be conducted under the grant include: developing and testing procedures for distributing a program or series in a venue in addition to PBS, implementing such distribution, and evaluating the impact on audience size in the new venue as well as on subsequent broadcast on PBS. The final report will document the results of this research and describe the steps required to arrange for multiple venues. This project represents examination of an untested idea, the results of which may establish the basis for significantly increasing the impact of broadcast programming supported by NSF. Traditionally, when PBS has agreed to schedule a program or series, they have insisted on a window of exclusivity for a period three years. If the data from this project indicates that broadcast of a PBS program in a new venue reaches new audiences and, potentially, attracts some of that audience to PBS, it should establish a more open attitude on the part of PBS toward multiple venues at a much earlier time.